Presidential Young Investigator Award: Research in High Energy Physics

This award supports research in Elementary Particle Physics by Dr. Joey W. Huston, a Presidential Young Investigator. Dr. Huston has been involved in the design, construction, installation and running of the lead/liquid argon calorimeter for an experiment (E706) at Fermilab. The data taken will allow one of the best determination of the gluon structure function of hadrons and the investigation of gluon fragmentation through analysing the production of direct photons and their accompanying hadrons in collisions of pions, kaons and protons with a variety of nuclear targets.